Travel to Attend: Europe - U.S. Symposium on "Finite Element Methods for Nonlinear Problems"; Trondheim, Norway; August 12 - 15, 1985

The researcher is an internationally known authority in the subject of Finite Element Methods for Nonlinear Problems and is invited to present a paper and actively participate in the discussions of the group on the broad aspects of the topic at the International Workshop to be held at Trondheim, Norway, August 12-15, 1985. The proceedings will be published and distributed on a world basis. Therefore, it is highly desirable that the United States be represented in the proceedings. In addition to the formal presentation, the participant will actively contribute to the more informal and informative sessions following the presentations.